Synthesis and Properties of Quasicrystalline and Crystalline Intermetallic Compounds with Bandgap

9700584 Poon A comprehensive study of electronic properties in intermetallic alloys is proposed, the goals are to understand the nature of the insulating state, the metal- insulator transition and the strong electronic anisotropy recently observed in some quasicrystalline alloys as well as to explore the roles of atomic-scale order and chemistry in electron transport and bandgap formation in inermetallic compounds. The spin-off of the project will be to identify new thermoelectric materials for high-temperature applications. The project is a widely collaborative one, it involves experts from several areas to study structure- chemistry-property relationships. The principal investigator will carry out synthesis and structural characterization of alloys, measurements of conductivity, specific heat, Hall effect, and thermopower. Other collaborators will utilize optical conductivity, x-ray spectroscopy, electron tunneling, and nuclear magnetic resonance to probe electronic structure. Effects of structure on properties will be studied by advanced electron microscopy and nuclear magnetic resonance techniques. %%% Physicists and materials scientists are interested in unusual crystal structures because unusual atomic arrangements in solids provide new challenges for understanding organization and order in nature. Equally important, unusual physical properties are expected to be seen in novel materials. Our research project focuses on comprehensive study and further exploration of electronic properties of metallic alloys including those that exhibit noncrystalline structures, known as quasicrystals. The project is a widely collaborative one, involving several groups world-wide to contribute to a variety of experimental measurements. It has been shown that some of the titled alloy compounds based on metals can become nonmetals, several of them even exhibit electronic phenomena similar to those observed in semiconductors such as silicon and germanium. The re are indications that the new alloys are potentially good thermoelectric materials. ***